Field Museum Spring Systematics Symposium; Chicago, IL; May l988

With support from the Field Museum of Natural History, Dr. Matthew Nitecki has organized a symposium addressing the general topic of Biological Innovations, to be held in May of 1988. Speakers from fields of molecular biology, morphology and anatomy, systematics, and paleontology will address problems related to the origin of novel biological structures, molecular pathways, and functions, at the levels of population, species, and lineage through time. A major focus of the discussions will be efforts to disentangle cause and effect in the study of evolutionary innovations, defined as new structures or functions that open up new ways of life for particular groups of animals or plants. Dr. Nitecki and the Field Museum have a strong record of managing and hosting symposia addressing significant topics in the field of systematic and evolutionary biology. The symposia attract over 200 researchers, including many students, and have been held since 1978. Results are published promptly, and these publications have been regarded as of high quality.